CAREER: Non-Equilibrium RNA/Protein Liquids and Intracellular Phase Transitions

In this project, the PI will focus on elucidating two important aspects of RNP liquids: 1) Their assembly from soluble components, and 2) Their material properties, which strongly impact their biological function. The PI will study the complexity of living cells by first taking a bottom-up approach, utilizing an in vitro system of purified components. This will be complemented by utilizing advanced microscopy and image analysis techniques, and novel molecular dynamics measurements. These combined in vitro/in vivo studies will allow the PI to understand the full complexity of RNP liquids, and test the hypothesis that the assembly and properties of these droplets are tuned by ATP-dependent biological activity. The broader impacts of this proposal include educating the next generation of biophysicists by providing laboratory research training at the high school, undergraduate, and graduate levels; at the undergraduate level, laboratory training for senior thesis research will play a key role. In the classroom, the PI will develop new courses on Quantitative Biology and Soft Living Matter. This teaching is part of the PI's broader effort to build the infrastructure for growing Princeton's nascent Bioengineering community, and couple it to the greater Biophysics community on campus and beyond. At the K-12 level, the PI has developed an outreach partnership with the Trenton public schools, which focuses on inspiring under-represented groups of 8th grade students from Kilmer Elementary School. The PI will visit the classroom for hands-on presentations on Soft Living Matter, and these students will visit the PI's laboratory. To evaluate the efficacy of this outreach, quantitative evaluation tools based on the Test of Science Related Attitudes (TOSRA) will be used, which the PI will implement and analyze together with a science education researcher.

This project is being jointly supported by the Physics of Living Systems program in the Division of Physics and the Cellular Dynamics and Function Program in the Division of Molecular and Cellular Biosciences.